Blue-Light Signal Transduction in Chlamydomonas Reinhardtii

MCB 9509028 Gail Matters The project will initiate a study of blue-light regulation of plant gene expression and begin to identify blue-light signal transduction intermediates. The experimental system is based on the gene encoding glutamate-1-semialdehyde aminotransferase, an enzyme which acts early in the chlorophyll biosynthetic pathway. The project will identify promoter regions involved in blue light regulated gene expression and may lead to further studies on a factor(s) which interacts with these DNA sequences. In addition, the project will examine potential blue light signaling compounds including cAMP, cGMP, calcium, and calmodulin which are involved in signaling in higher plants. %%% This project will identify mechanisms by which components within cells interact in response to a stimulus such as exposure to light. ***